Research Initiation: Development of a Spherical Stepper Wrist Motor

The objective of this research is to establish a theoretical basis for the creation of a spherical wrist stepper motor capable of three degrees of orientation motion in a single joint. The ball-joint-like spherical wrist motor is characterized by its simplicity in structure, compact design and free from singularities in the middle of the workspace except at the boundaries and unbalanced rotor centrifugal forces. The spherical wrist stepper motor has significant applications where the end-effector is required to orient quickly, continuously and isotropically in all directions such as high speed plasma and laser cutting. The research will focus on three areas. The first is the prediction of the magnetic fields and reluctance forces for a given design using finite element technique, which will also provide a good understanding of the influences of the design parameters, on the torque and resolution. The second is an optimization using non-linear programming techniques to maximize torque while minimizing weight and volume for a specified resolution. The third area is the development of a two-level control scheme to pre-plan an optimum trajectory and to develop an orientation control law with good disturbance rejection.